NGS: Performance Modeling and Programming Environments for PetaFlop Computers and the Blue Gene Machine

EIA-0103645
Laxmikant V. Kale
University of Illinois

Performance Modeling and Programming Environments for PetaFlop Computers and the Blue Gene Machine

The objective of the proposal is to develop performance simulation capabilities to allow system level analysis and prediction of performance of the next generation complex PetaFlop machines that include multiple levels of memory hierarchy and interconnects. The performance simulator that will be developed will be used to test parallel data structures and algorithms implemented in programming environments used in these machines, as well as frameworks to enable the development of applications for these machine classes. A number of important applications will be used to test and validate the CS technology advances.